U.S.-Spain Collaborative Research: International Collaboration on Particle Physics Implications of M-theory

0203585
Cvetic

This three-year award for US-Spain collaboration on particle physics of implications of M-theory involves Mirjam Cvetic and his students of the University of Pennsylvania and Luis Ibanez and Angel Uranga at the Universidad Autonoma of Madrid, in Spain. The purpose of the project is to investigate the fundamental aspects of strings and branes, as well as the powerful applications of string theory to particle phenomenology, astrophysics, and cosmology.

The US researchers and Spanish researchers bring to this collaboration expertise in string model building and string phenomenology. The Penn theory group has also begun to broaden the scope of string phenomenology to astrophysical and cosmological issues. The objectives of the joint project are to bring the state of the art of model building in new regimes of M theory to the next level.